Mathematical Sciences: Studies in Quantization

9308707 Robinson The research entails a study of representations of Clifford algebras on Hilbert spaces within a geometric context. Links with reduction methods in symplectic geometry and geometric quantization are expected. Transferences between phase spaces and the generalized theory of the harmonic oscillator will be studied in view of symplectic group actions. The research is likely to have significant applications to modern quantum field theory and Hamiltonian mechanics.